Dynamic Characterization of Trickle-Bed Reactors (Industry-University Cooperative Project)

Trickle-bed reactors are used in a wide variety of petroleum processing systems such as hydrodesulfurization, denitrogenation, demetallization, hydrotreating and in manufacture of chemicals involving hydrogenation and oxidation reactions. The reactors consist of solid catalyst pellets, 0.08 cm to 0.32 cm in diameter, packed into a vertical tubular reactor with cocurrent (downflow or upflow) or countercurrent gas/liquid flow configurations. They are widely used because their flow pattern approaches plug flow, high catalyst loading per unit volume of the liquid is possible, energy dissipation is low, and there is flexibility in production rate and operating conditions. The potential of trickle-bed reactors has never been fully utilized especially in chemical processing and manufacture of specialty products. This is due to the fact that the phenomena in trickle-beds are incompletely understood, and the difficulties which are associated with trickle-bed design exceed those encountered with other reactor types. While scaleup of trickle-bed reactors in petroleum processing for certain types of known feeds is well established as an art, "a priori" prediction of trickle-bed performance of scaleup from small laboratory units for feeds and processes for which previous know-how does not exist is still considered very risky and is simply not done. The scaleup problem in trickle-beds is hampered mainly by inadequate knowledge of both the particle scale incomplete contacting as well as by the gross liquid maldistribution on the bed scale in industrial trickle-beds. Accurate design presupposes the knowledge of local liquid-solid contacting (i.e. of the extent of external and internal wetting of the particles) and of the non-idealities of flow of the liquid external to particles (i.e., bypassing, radial non-uniformity in flow, other deviations from plug flow, etc.). Tracer methods offer a tool for evaluating both of these reactor scale and particle scale non-idealities. It is the scope of the proposed research to investigate new methods of tracer data interpretation in identification and decoupling of the above effects. The key idea behind the proposed project is the use of multiple tracers i.e. the use of non-adsorbing and adsorbing (non- volatile) tracers to characterize the behavior of the liquid phase in a reactor. The PIs want to show that additional information, which allows the decoupling of the reactor scale and particle scale non-idealities, can be obtained by the use of this technique.